Integration of an FT-NMR into Chemistry and Physics Curricula

Chemistry (12)
A Varian 360-L NMR spectrometer which has been converted to a Fourier Transform instrument has become an integral part of the laboratory experience of students at this institution's Department of Chemistry and Physics. It has enhanced undergraduate student research projects and increased interaction between sections of the Department. It is critical to curriculum development as the Department emphasizes the multidisciplinary and interdisciplinary nature of science. Students from a local community college are provided access to the instrument.